Time-Resolved Fluorescence Microscope System

In the past five years, steady state fluorescence microscopy has revolutionized light microscopy due to the high degree of sensitivity and specificity. The time resolution of steady state fluorescence microscopy when used to measure chemical or molecular parameters has been in the seconds to hundreds of milliseconds range. Fluorescence and phosphorescence lifetimes can attain time resolutions from nanoseconds to seconds depending on the probe and can be used to extend the temporal resolution of measurements. In addition, the chemical and physical environment of a fluorescent or phosphorescent probe influences the lifetime of the excited state of the probe. Thus the decay of the luminescence produced by an excitation pulse is characteristic of the chemical and physical environment so time resolved microscopy can be used to measure chemical and molecular changes in cells. Results with a test microscope system have demonstrated the feasibility of the approach and we are asking for the commercially available components to assemble a complete system. The applications include characterizing the lifetimes of newly developed dyes, measuring changes in ionic environments in cells to measuring the rotational diffusion coefficients of labeled macromolecules. This latter measurement will allow the characterization of assembly and binding processes of macromolecules in living cells. Time resolved microscopy will become a complementary tool to steady state microscopy and will be the method of choice in many applications where the total excitation dose must be minimized. In fact the lower total excitation dose required and the higher sensitivity of rotational diffusion measurements will probably make this the methods of choice over the now popular fluorescence photobleaching redistribution technique in many applications.